SST Integrated Particle Counting and Potentiometric Sensor Array for Water Quality Analysis

0529385 Brown This project will develop a new method of particle analysis based on electrophoretic capture and release of particles by nanopores. The proposed particle sensor array will be an all-electronic, mass-fabricated CMOS-integrated device, and it will be orders of magnitude smaller than current particle-measuring devices. Preliminary results demonstrate that particle capture time for a given pore is related to the concentration of particles larger than the pore diameter. Fundamental studies will characterize particle capture and release dynamics of the nanopores as a function of electrode excitation schemes. A manufacturing process will be developed to fabricate nanopores on top of CMOS circuitry. The sensor thus developed could be used to test for particles in water or to test water into which airborne particles have been collected. Particle measurements are useful in assessing water quality for a variety of practical reasons. The approach being developed by the PIs is novel and represents "cutting edge" nano-science.